Collaborative Research: NeTS: Small: AI-driven Cross-camera Video Analytics through Networked Co-learning

Many places use several cameras to understand what is happening, such as roads, buildings, stores, cars, and laboratories. Today, these cameras often work like separate eyes, with each camera watching only its own view. This project helps a group of networked cameras work together so the entire scene can be understood more clearly and quickly. This collaborative project brings together the University of Illinois Urbana-Champaign and George Mason University to build smarter networked video analytics systems that let cameras learn from one another, send video more efficiently, combine views, and make fast decisions even when underlying networks and analytics servers are busy. Existing cross-camera video analytics systems are limited to rigid engineered designs, compromising the potential to collect videos from arbitrarily placed cameras and transmit them to servers for user-designated applications. To bridge this gap, this project investigates a broadly applicable solution with high accuracy and low latency under limited bandwidth and computing resources. Instead of relying on handcrafted cross-camera rules, this project designs an artificial intelligence (AI) driven framework that integrates AI-learned cross-camera dependencies into the end-to-end system pipeline. The first research thrust creates an asymmetric cross-camera video codec in which cameras encode views separately, and a remote server jointly decodes them, with hybrid offline and online training to adapt to changing network bandwidth. The second thrust devises a unified inference framework with networked submodels that share features, schedule appropriate cameras, and support different analytics tasks. The third thrust develops reactive system adaptation through adaptive buffer management, deciding which megaframes sent by the scheduled cameras should be kept or dropped at the server. This system adaptation balances end-to-end accuracy and latency under changing network bandwidth and computing limits.

The project will enable broader cross-camera networked video analytics in applications across public safety, transportation, autonomous vehicles, smart retail, sports, and laboratory safety. The software, datasets, and documentation generated from the project will be disseminated to researchers and practitioners in networking and computer vision communities to advance networked vision-based AI systems. The research outcomes will also support the development of course curriculum, undergraduate research, and public outreach in the field of networked vision AI.